Genetic Diversity and Behavioral Ontogeny

How do animals adapt to changes in their environments? Are all healthy, normal appearing individuals or their offspring equally able to survive? Since finding and utilizing food resources are important aspects of survival and the occupation of new or altered habitats, this proposal aims at the study of foraging and food use in a species with a generalized diet that is known to exploit novel prey. This species is the common garter snake, Thamnophis sirtalis, which can feed on a variety of small animals. This investigator will follow babies from birth through the first months of life in a study that will look at the effects of genetic background, diet, and ontogeny on food choice, foraging ability, and growth. The initial responses to prey involve chemical cues in newborn common garter snakes. There is great variability among individuals, even from the same litter. Experience with different prey types can alter prey recognition, prey preference, and prey capturing ability. This project will investigate this individuality and plasticity with snakes from different litters born to mothers from the same natural area. Since one advantage of snakes is the large number of animals born to each mother, snakes from each litter will be put in various groups raised on controlled or free-choice diets. Another advantage of this species is that different babies born to a given female may have different fathers. Thus identifying which snakes in a litter have the same or different fathers can help separate genetic factors from prenatal environmental ones. Newly developed microsatellite DNA techniques will be applied in identifying animals with the same or different fathers. It is hoped that the results of this work will help in predicting which aspects of foraging are most important to survival when animals confront different or changed environments, and how environments and genetic differences interact.